Adapting Diagnostic Digital Portfolio Technology to Track Assessments of Advanced Student Learning Outcomes in Analysis and Problem Solving Abilities

This project adapts Alverno College's Digital Diagnostic Portfolio (DDP) technology for advanced level SMT courses to address several goals. These include monitoring and building coherence within the major programs in SMT; identifying and describing how the implementation of DDP in SMT curricula affects assessment processes; identifying, describing and comparing how DDP in non-SMT curricula affects assessment in SMT; and using DDP to study the differences and commonalties in analytic problem solving. This will provide important understanding of the ways in which adapting technological innovations impacts not only the natural science fields but, through comparative analyses, other disciplines as well. The wider benefit of this project outside of Alverno College will be in analyzing and describing the process of adapting the DDP assessment technology and in attempting to describe the effects of such assessment technology upon student learning and achievement.